Vertical Deformation Measurement at The Juan De Fuca Ridge Obsevatory Site

9416939 Zumberge The principal investigators will conduct a series of vertical deformation measurements on the Juan de Fuca Ridge by deploying a series of ocean-bottom benchmarks and measuring their vertical positions using a recently developed ocean bottom absolute gravity meter together with absolute pressure measurements. This work will be done in conjunction with horizontal strain measurements and is expected to be a long-term part of the RIDGE observatory effort on the Juan de Fuca Ridge. ***